Defect Dynamics and Quantum Transport in Disordered Mesoscopic Metals

9321850 Birge Technical abstract: The low temperature electrical properties of mesoscopic metal samples will be studied in order to uncover new physical phenomena that are unique to the mesoscopic regime. The specific problems to be studied include dissipative quantum tunneling of single defects in disordered metals, modulation of microscopic defect properties by externally applied electric and strain fields, and the role of mesoscopic superconductors in enhancing electronic quantum phase coherence. Measurements of 1/f noise in larger samples complement the mesoscopic measurements by providing statistical information about defects in disordered systems. Non-technical abstract: This proposal focuses on two areas of study related to disordered metals. The first is the study of individual, atomic defects. By carefully measuring the electrical conductance of sub micrometer samples, one can detect the motion of a single atom within the sample. This type of study reveals details about individual defects that are not obtainable from studies of larger samples. The second area of study is the quantum-mechanical behavior of electrons in metals at low temperature. Due to their wave-like nature, electrons in metals exhibit interference. In sub micrometer samples of normal and superconducting materials, this interference leads to a number of new, intriguing electrical properties. These effects can have potential impact on the development of future mesoscopic devices. ***